Empirically Determined Climate Predictability Using Nonlinear Time Series Models

Abstract ATM-9417528 McKeague, Ian W. Florida State University Title: Empirically Determined Climate Predictability Using Nonlinear Time Series Models This grant is to apply various modern methods of nonlinear time series analysis to look at the problem of climate predictability. Observed and GCM simulated time series will be examined using the tools of nonlinear dynamical systems theory to construct nonlinear statistical models. This will enable the PIs to assess the predictability of climate.